Space Weather Workshop; Boulder, Colorado; April 25–29, 2022

This award provides partial funding for the Space Weather Workshop to be held in Boulder, Colorado or online in April 2022. The annual Space Weather Workshop, supported by NOAA, NASA, and NSF, has been our nation’s premier meeting on this topic since 1996. It brings together researchers, infrastructure operators, and policymakers to share actionable information on space weather, whose modeling and prediction remains a current challenge for science and societal resilience.

The Space Weather Workshop highlights the remarkably diverse impacts of space weather on today’s technology including electric power systems, communications, navigation, aviation, and spacecraft operations. It explores recent scientific advances in predicting conditions in the space environment and the breadth of space weather research to operations and operations to research opportunities. The workshop promotes undergraduate and graduate student participation in space weather science and gives them insights into our nation’s space weather priorities, thus developing the next generation of space weather professionals.